Particle Physics Beyond the Standard Model and the Astroparticle Frontier

Research in theoretical phusics will focus on improving our understanding
of elementary particles, their interactions, and their relevance to
astrophysics and cosmology. Plausible extensions of today's very well
confirmed "standard model" of the elementary particles will be constructed
in order to resolve such outstanding questions as the contrasting and
unexplained patterns of neutrino and quark masses, especially the
underlying mechanisms producing these masses; the nature of the dark
matter and dark energy that now dominate the dynamics of the universe; the
origin of cosmic rays with energies beyond what was expected; the failure
to detect any electric dipole moment of the neutron and the apparent
departure of the recently-observed magnetic moment of the muon from its
predicted value.